SHF: Foundations for Comprehensive Integration Testing in Agentic AI Workflow Orchestration

This project addresses a critical vulnerability in the rapidly evolving landscape of artificial intelligence. As systems transition from single-use conversational chatbots to teams of autonomous software agents that work together to execute complex workflows—such as medical triage, financial auditing, or smart-grid management—ensuring their reliability becomes essential. When these autonomous agents interact asynchronously, subtle variations in timing can cause them to act on incomplete or outdated information. Dangerous coordination errors occur when individual components operate correctly in isolation, yet the unified system fails catastrophically and silently. The project’s novelties are the formalization of these complex conversational interactions into discrete, testable structures and the design of automated testing mechanisms that systematically uncover hidden coordination flaws without executing millions of expensive trials. The project's broader significance lies in establishing foundational safety standards and testing tools that enable industries such as healthcare, finance, and energy to safely deploy autonomous AI systems in environments where errors can jeopardize human life or economic stability.

The technical approach centers on creating an Agentic Reliability Toolkit to transform non-deterministic agent communication into a verifiable framework. The methodology introduces a middleware interception layer that captures the linguistic state transitions of multi-agent execution loops and maps these interactions into a formal structure known as a Discrete Interaction Graph. To mitigate the exponential explosion of potential execution paths, the project implements domain-aware semantic pruning based on commutativity analysis, which mathematically identifies independent agent actions and isolates redundant execution orderings, thereby reducing testing overhead. Furthermore, the framework replaces rigid, brittle exact-match assertions with property-based semantic verification. These flexible test oracles leverage domain-specific safety ontologies and separate evaluation models to distinguish acceptable linguistic variations from genuine functional failures. This work ultimately provides software engineers with the first comprehensive infrastructure for achieving deterministic replay and systematic interaction coverage in autonomous multi-agent workflows.